AMP: The Georiga-United Negro College Fund Alliances for Minority Participants

HRD-9701829 Cole Clark Atlanta University, in cooperation with its sister United Negro College Fund (UNCF) institutions in Georgia (Morehouse, Morris Brown, Paine and Spelman Colleges), proposes to establish an Alliance for Minority Participation (AMP) program. The junior college partner is Atlanta Metropolitan College and the Atlanta Public Schools is the junior precollege partner. The combined undergraduate enrollment of the Georgia-UNCF AMP exceeds 15,000 with more than 55,000 precollege students. The enrollment in the sciences, engineering and mathematics (SEM) is 2,640. The goal of the program is to double the number of SEM graduates by the year 2002 based on the 1996 rate and to improve the quality of instruction to insure that increased numbers of baccalaureate recipients go on to graduate study. Building on the strengths of each partner, this AMP will (1) increase the recruitment efforts of potential SEM majors from Georgia; (2) establish or enhance prefreshmen summer bridge programs for 125 students; (3) provide financial support through scholarships and research assistantships; (4) provide students with research experiences; (5) improve the SEM curricula with a special emphasis on entry level courses; (6) improve the instruction in entry level SEM courses; and (7) conduct workshops on mentoring and peer tutoring, and establish relationships with 10 graduate programs. Dr. Thomas W. Cole, Jr. President of Clark Atlanta University is Principal Investigator, Dr. Melvin R. Webb is Project Director and Dr. Denise Stephenson- Hawk is Project Co-Director. Dr. Thomas W. Cole, Jr. will Chair the AMP's Governing Board. The National Advisory Committee will be chaired by Dr. David C. Turner of the Naval Research Laboratory. Each AMP institution will have a campus coordinator and an interdisciplinary faculty team to work with the program. UNCF will provide staff resources as well as fund-raising and publicity assistance.